The Importance of Deep-Time Geologic Records for Understanding Climate Change Impacts

The Importance of Deep-Time Geologic Records for Understanding Climate Change Impacts

David A. Feary
National Research Council
EAR-0636768
SGP has co-funded thisproposal with the Geology and Geophysics Program (OPP) and the Earth Systems History Program (EAR).

ABSTRACT
The proposed activity will provide a description of the existing state of knowledge for an important research field that spans a number of disciplinary areas, as well as identifying a series of high priority research opportunities that have the highest likelihood for making significant advances in knowledge. Funds are requested to support an 18-month National Research Council study to address the importance of deep-time geologic records for understanding climate change impacts. The study will assess the present state of knowledge of earth's deep-time paleoclimate record, with particular emphasis on the transition periods of major paleoclimate change, describe opportunities for high priority research with particular emphasis on collaborative multidisciplinary activities, and outline the research and data infrastructure that will be required to accomplish the priority research objectives.